NUE: Teaching Undergraduates Nanomanufacturing Engineering (TUNE)

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled NUE: Teaching Undergraduates Nanomanufacturing Engineering (TUNE), at Louisiana Tech University under the direction of Dr. James Palmer, will produce nanosystems engineering graduates with the critical thinking and mnaufacturing skills necessary to meet the nation's workforce needs in nanotechnology. This project will create a new junior level nanomanufacturing laboratory course that focuses beyond fundamental nanofabrication techniques to consider the production engineering aspects of nanomanufacturing through effective characterization of the manufacturing process; integrate a focus on nanomanufacturing into capstone senior projects; connect industry to Louisiana Tech's Nanosystems Engineering degree program; and recruit future nanosystems engineering from underrepresented groups in STEM.